Collaborative Research: Origins of the Ontong Java Plateau,SW Pacific: A Geochemical and Stratigraphic Study of Exposed Plateau Basement in the Solomon Islands

The Ontong Java Plateau is the largest oceanic plateau in the world. The P.I.s propose to carry out systematic field sampling and a detailed petrographic, chemical, Nd-Sr-Pb isotopic, and 40Ar-39Ar investigation of a >2000 m-thick tract of plateau basement exposed on the island of Malaita in the Solomon Islands. To complement this work, the P.I.s will also study a suite of lavas (collected previously by the Solomon Islands Geological Survey) from other basement exposures along a 300-km-long zone in southern Malaita and the neighboring islands of Small Malaita and Santa Isabel. The results will extend knowledge gained from drilling by providing a deep, stratigraphically controlled record of mantle source, age, and petrogenesis, and a wide spatial coverage of basement age and compositional variations over a much broader region.